The Kahler Ricci flow and the extremal Kahler metrics

Abstract for DMS - 0110321

This projects mainly deals with some central issues
in Kaehler geometry: the uniqueness and existence of extremal Kaehler
metrics and as well how to obtain such a solution. On the Kaehler
Ricci flow problem, I am working with G. Tian. Our main results
are: in any Kaehler-Einstein manifolds, if the initial metric has positive
bisectional curvature, then the flow converges exponentially to a
unique Kaehler-Einstein metric. I plan to work with him to eliminate
with the assumption of positive bisectional curvature or the assumption
of Kaehler Einstein metrics. On the problem of geodesic, the main results
of my research are: a) there exists a geodesic with second derivatives
uniformly bounded, between any two Kaehler metrics in
a Kaehler class. A direct consequence of this result is that the constant
scalar curvature metric is unique in each Kaehler class if the first
Chern class of the manifold is negative. b) the space of Kaehler
metrics is a metric space and it is non-positively curved in the
sense of Alexandrov. On the problem of geodesic, I want to improve the
regularity of geodesic to three derivatives uniformly bounded
(or to understand when this regularity might fail). That will be a very
important consequence in Kaehler geometry.

Kaehler Einstein metric arose naturally from Physics, algebraic geometry and
some other diverse areas of mathematics. Extremal Kaehler metric is a
natural generalization of these concepts by E. Calabi. The method of finding these
metrics is by solving a totally nonlinear elliptic partial differential equation on
manifolds. Most of the time, one can not find solution explicitly. Then one has to
rely on various kind a priori estimates to determined when there exists a solution
and if the solution metric should be unique. In this project, we will develop some
new techniques to handle these difficult estimates. And these techniques will
have impact in other related problems of mathematics.